WORKSHOP: Advances in Computers and Computational Sciences.

Intellectual Merit

This proposal seeks to sponsor U.S. faculty and researchers to attend the first SINO-US
Workshop on Computer and Computational Sciences (WCCS) to be held in Beijing 2005. The
purpose of the workshop is to strengthen research exchange in computer sciences, and to
promote successful collaborations between experts in the field. WCCS provides a forum for
presenting the latest advances in computer and computational sciences, engineering, and
technologies. It also provides a platform for discussing the practical challenges
encountered and the solutions adopted thus far.

Broader Impact

A particular aim of WCCS is to bridge the gap between the research community and the
application domains, and to foster discussion and technology exchange between these two
communities within the two geographic regions (US and Asia). As such, we have invited
top-notch researchers in the computer science community to serve on the Technical
Program Committee.
We believe that by offering funding for selected U.S. scientists (who would not otherwise
be able to attend due to monetary obstacle), these individuals and the overall workshop
goals will benefit. Travel support for attendance will be advertised nationwide; women,
minorities and disabled faculty and researchers will be especially encouraged to apply for
sponsorship.

The foremost goal is to establish contacts for future collaborations and to allow for ideas
and solutions to be exchanged.